Polynomial Optimization and Finite Element Methods for Nonlinear Mechanics

The purpose of this interdisciplinary project is to devise a new generation of computational methods based on the combination of finite element methods and polynomial optimization to analyze problems in nonlinear mechanics, which often exhibit a complex evolution over time and space. Some examples include fluid flows, convection, and nonlinear elasticity. Computing these systems’ equilibria and producing a detailed diagnosis of their stability can be of notorious difficulty, but are of profound importance for elucidating the underlying physical mechanisms involved. These novel algorithms and rigorous analysis will allow the improvement of longstanding results in fluid mechanics related to the stability and dynamics of canonical shear flows. The results may lead to a deeper knowledge of turbulent losses in fluid systems, which could play a critical role in engineering problems within the transport and energy sectors.

The project has two parts. The first part focuses on rigorously establishing the nonlinear stability of fluid flows with the goal of sharpening the lower bounds on the global stability threshold of shear flows (the largest Reynolds number under which any initial velocity field eventually converges to the laminar flow), such as plane Couette and plane Poiseuille flows. This will be achieved by carefully constructing Lyapunov functionals with the computer using polynomial sum-of-squares constraints and a special framework to pose the incompressible Navier-Stokes equations. The second part proposes the first connection between finite element analysis and sparse polynomial optimization. The combination has some nice theoretical implications, since finite element error analysis is deeply rooted in functional analysis and approximation theory, while the nascent field of polynomial optimization is closely tied to results in real algebraic geometry. From the practical standpoint, the computational methods developed will form a general framework to directly solve nonlinear partial differential equations (PDEs) in general domains while concurrently globally optimizing relevant quantities of interest (e.g. energy, heat transport, etc.). The resulting numerical methods provide a systematic pathway to compute exact coherent states of physical systems without using homotopic continuation. This is essential in problems where non-unique solutions do not bifurcate from a trivial state, like in plane Couette and pipe flows.